Computer Graphics Laboratory

This project will equip a departmental computer graphics laboratory with several color workstations. This will enable the department to make computer graphics a regular part of the computer science curriculum, to use advanced color graphics in other courses in computer science and mathematics (such as discrete structures and complex analysis), and to offer students doing independent work a facility well suited to research in computer graphics.